Collaborative Research: Visualization, analysis, and HPC modeling of subglacial hydrology from high-resolution 3D conduit scans acquired with a novel sensor

This project will examine the processes controlling the flow of water through and beneath an Arctic glacier. The hydraulic properties of glaciers are a major factor influencing the rate at which glaciers slide on the underlying rock. Understanding subglacial flow is critical to developing models that accurately predict how glaciers will behave in response to warming climate and how glaciers will contribute to sea level rise. For outreach and educational purposes, the project will develop a web-based, interactive fluid dynamics tutorial concerning subglacial conduits. A project web site will also be developed. The project will contribute to workforce development by supporting the training of a graduate student and by providing partial support for three early-career scientists.
This study will perform three-dimensional computational fluid dynamics (CFD) large eddy simulations (LES) of turbulent flows in a subglacial conduit using realistic surfaces and mesh boundaries. The computations will be done using 3D high-performance computing. The conduit geometry and roughness will be based on a unique set of field measurements made on a Svalbard glacier using with a modified video-game controller at mm resolution. The result of this effort is a first-ever high resolution visualization of a real subglacial conduit and the first subglacial LES simulations with realistic geometry. Results will be compared with model output using the more standard Darcy-Weisbach or Manning formulations. The study will provide improved insights into hydrological processes in mountain glaciers and large ice sheets such as the Greenland Ice Sheet.